Efficient High Order Numerical Methods for Convection Dominated Partial Differential

In this project, research in the algorithm design and analysis
of high order numerical methods, including the finite difference
and finite volume weighted essentially non-oscillatory (WENO)
schemes, discontinuous Galerkin finite element methods, and
particle methods, for hyperbolic and other convection dominated
partial differential equations, especially in adaptive, multiscale
and uncertain environments, will be carried out. Parallel
implementation and applications of these methods will also be
addressed. The intellectual merit of the proposed activity lies
in its comprehensive coverage of algorithm development, analysis,
implementation and applications. Problems in applications
motivate the design of new algorithms or new features in
existing algorithms; mathematics tools are used to analyze
these algorithms to give guidelines for their applicability
and limitations; practical considerations including parallel
implementation issues are addressed to make the algorithms
competitive in large scale calculations; and collaborations
with engineers and other applied scientists enable the
efficient application of these new algorithms or new features
in existing algorithms.

The proposed research aims at the design of efficient algorithms,
which, when used on today's powerful computers, will help to
solve many problems from diversified applications such as
aerodynamics and aeroacoustics for aircraft design,
electromagnetism wave simulation for communications,
and semiconductor device simulation for the computer industry.
The thrust of this proposal is to use powerful mathematical
tools to guide the design of algorithms, so that they are more
efficient, more reliable, and more robust in applications.